On the Potential Use of Inflatable Dams for Flood Control: An Experimental and Analytical Study

9422248 Telionis During many flood events flood waters, overtop levees and flood control water works fail, sometimes leading to catastrophic results. Inflatable dams could be a more effective option for the protection of specific structures and facilities. This project will study the behavior of these dams subjected to a parallel or an oblique flow of water on one side of the dam, to the effect of impacts from debris, and of various levels of flood waters. Experimental, analytical and numerical methods will be used to better understand the hydroelasticity and fluid mechanics of inflatable dams under flood conditions. The mitigation measures resulting from this study will benefit many flood- prone regions in the country. ***